SBIR Phase I: Enhanced Plasma deposition Process for MgO-Based Magnetic Tunnel Junctions with 500% Magnetoresistance

This Small Business Innovation Research (SBIR) Phase I project aims to demonstrate the
feasibility of fabricating high quality MgO-based magnetic tunnel junction (MTJ) devices
with magnetoresistance (MR) values of over 500%, via an innovative process which
utilizes optimized plasma-based magnetron sputtering and RF plasma oxidation. We will
use a number of novel methods to fabricate highly symmetrical, near epitaxial MgO
barriers with (001)-orientation using plasma sputtering and oxidation methods. Using
these methods, we will be able to realize a smoother barrier and the resulting process will
be suitable for adaptation to large-scale production with high yield and uniformity. Our
method combines three innovations. First, we will design a new deposition procedure to
make symmetrical interfaces on both sides of the MgO barrier to enhance the coherent
tunneling effect required for high MR. Secondly, we will improve the (001) texture of the
MgO barrier by choosing ferromagnetic layers with a composition tuned for both high
spin polarization and small lattice mismatch. Finally, we will implement a new plasma
oxidation method to minimize both plasma damage to the barrier and MTJ interface
roughness. If successful, the resulting MgO-based MTJ devices will surpass the
performance of all other existing magnetoresistive devices.

Commercially, this technology will have a huge commercial impact on the non-volatile memory specifically, for MRAM (magnetic random access memory) and disk drive for tunnel magnetoresistance (TMR) read/write heads industries. The success of the project will not only bolster the market position of MRAM and MTJ read heads, but will also enable innovative new products in other market segments, such as semiconductor failure
analysis and a wide range of emerging bio-magnetic applications.